A Field Sequential Color Technique for High Resolution Autostereoscopic Displays

In this project, Dimension Technologies Inc. (DTI) proposes to investigate issues related to a color version of the high resolution illumination scheme being investigated under the current NSF program number ISI-9161185, titled "Demonstration of a Method of Creating a Very High Resolution Autosteroscopic Flat Panel Display." The work will involve research into a field-sequential color illumination technique for liquid crystal displays that promises to allow the creation of ultrahigh resolution two-dimensional or autostereoscopic three-dimensional images DTI has augmented its staff with experts in the fields of color and psychophysics for purposes of this research. We believe the technique proposed has features that overcome some of the problems and limitations associated with previous field-sequential color illumination schemes, while simultaneously allowing the creation of images that have greater resolution than that provided by the LCD pixels themselves. If Phase 1 is research is successful, it would lead to the development of a prototype display that would use low cost LCD's yet be capable of very high resolution. We are convinced this would broad appeal in the display industry which perpetually seeks higher resolution and improved manufacturing yields at lower costs.